Mixing State of Aerosols and Its Impact on Global/Urban Climate and Urban Ozone

The goal of this project will be to analyze the effect of the mixing state of aerosols on global and regional direct forcing and temperatures. This effort involves the development of global-scale baseline aerosol model simulations and comparison with actual observations and climatologies. The project will investigate the global- and regional-scale mixing state of aerosol-particles and the resulting direct radiative forcing and feedbacks of aerosol-particles to climate. Aerosols to be investigated include (a) fossil-fuel soot and organic matter, (b) biomass burning gases and particles, (c) sulfur dioxide and resulting sulfate.